POWRE: Computational Induction and Deduction

EIA-9806184
Seitzer, Jennifer
University of Dayton

POWRE/CISE Computational Induction and Deduction

The objectives of the PI are to extend the ongoing study of logic and computer science to the application of these disciplines to real-world problems. The work proposed here is a three-faceted pursuit continuing the inclusion of the well-founded and stable logic programming semantics in the realm of inductive logic programming. First, the questions of the benefit of this synthesis will be further explored. Second, the computer system which the PI has developed in her dissertion work will be improved and augmented. Lastly, and most importantly, stable inductive logic programming will be applied to the real-world problems of Lyme disease diagnosis and the classification of the secondary structure proteins.